Experiments on Uniform Shear at High Reynolds Number

Abstract
CTS - 0080371
Warhaft

Turbulence theory, in which formal relationships between statistical properties of the velocity field are developed, undergird the development of the models and computational approaches which are the bases for most computational fluid dynamics. The latter is of considerable and growing value in fluids engineering. In this investigation, the PI will extend his earlier successful efforts to contribute fundamental- experimental observations that clarify and refine the basis for new theories. He will, in this work, examine very large turbulence Reynolds numbers and his data will further clarify issues related to the fundamentally important issue of local isotropy. It can be noted that ever larger R-values are to basic turbulence research as ever higher beam energies are to particle physics.